Engineering Equipment and Research Grant: Fourier TransformInfrared Spectrometer Upgrade

A Fourier-transform infrared spectrometer is acquired. This instrument will be used for research in catalysis, biomaterials, surface chemistry, materials, and polymers.